State/University Cooperative Research Center for IntelligentInformation Retrieval

WPCD 2 B R V ` Z #| x Courier 10cpi ? x x x , k x 6 X @ 8 ; X @ HP LaserJet Series II HPLASEII.PRS x 6 X @ 8 ; , t 0 OpX @ 2 B Adrion The State/Industry University Cooperative Research Center on Intelligent Information Retrieval was established at the University of Massachusetts in Amherst in 1992. NSF in partnership with the State of Massachusetts and 18 other companies both large and small support the program. This program addresses scientific issues that are key to the efficient access, management and control of information. The core research program includes four thrust areas, 1) information retrieval, 2) natural language processing, 3) case based reasoning and 4) control architectures. The Industrial Advisory Board which is composed of one representative from each of the member companies is actively participating in this program particularly in the area of medical information retrieval. The Industrial Advisory Board also provides guidance and evaluation of the research program. More than 15 papers have been accepted for publication for the research work that has been completed since the start of the Center.